Research and Education in Integrated Circuit Design for Communication and Magnetic Storage Systems

There is an intimate relationship between the algorithms used in communication and magnetic storage systems, the integrated circuits (ICs) which implement the algorithms, and the system performance which results. As systems increase in complexity, trade-offs and innovations need to be made at all levels of a system design in order to drive system/circuit performance to approach fundamental limits. This research is pursuing teaching and research plans which have the goal of developing students into engineers prepared to make significant and important technical contributions to the development of high performance communication and magnetic storage systems. On the side of teaching, the goal is to develop a curriculum which encourages students to make connections between both the theoretical and practical aspects of electrical engineering. The curriculum needs formal methods to bring out the synergy that exists between these two aspects of their field. On the side of research, the fundamental theme is to examine algorithms and architectures important in communications applications, identify performance or speed limitations of conventional implementations of the algorithms and architectures from an IC implementation perspective, develop ways in which modifications may result in implementation advantages, and prototype the new approaches in order to demonstrate its potential advantages. Proposed projects include the development of analog, digital, and mixed-signal ICs for wireless satellite and infra-red, wired LAN, and magnetic disk read channel applications.